Connections to NevadaNet - NevadaNet Phase III

9503532 Zitter This proposal requests funds for NevadaNet to fund six NSFnet connections to serve five remote community college instruction sites and one remote instruction site for the University of Nevada Medical Scool. On behalf of these institutions NevadaNet request NSF support to connect these sites to the Internet throught NevadaNet and our cooperating network service provider, SprintLink. The six connections sites are: Western Nevada Community College - Hawthorn Campus - Minden Campus Community College of Southern Nevada - Tonopah Campus - Caliente Campus University of Nevada Medical School, Boulder City Hospital The six connections would provide these sites with access ot important state, regional and national computing information resources, and enhancing instruction and research opportunities for their respective students and faculty. The benefits of this Internet connection include e-mail between local and remote researcheps and educators, file transfer capability and the ability to use remote computer resources. Also the college will have the ability to investigate innovation in educational resources and incorporate them into their curricula.